Human-Computer Interaction Laboratory

A human-computer interaction laboratory at the Psychology Department of the University of Illinois at Urbana is being enhanced for students from the fields of Industrial Engineering, Human Factors, and Cognitive Science. The new laboratory experiments provide a detailed account of human capabilities and limitations affecting interface design in general, but giving particular emphasis as it relates to computer products. The state-of-the-art interdisciplinary laboratory is oriented to the design and evaluation of human- computer interfaces. Students from Computer Science, Psychology, and Industrial Engineering are learning the basic concepts, methodology, and skills necessary to evaluate and design human-computer interfaces. The multi-disciplinary perspectives that are necessary for the successful design of computer products are fostered as part of the educational process when students from these different disciplines are brought together.